Dynamics and Mechanism in Organic Chemistry

9411248 Doering The thermochemistry of extended conjugation of carbon-carbon double bonds to a radical center will be determined. The stabilization energy for each incremental double bond will be determined and, where possible, compared to theoretical predictions. By the use of specially chosen rigid conjugated polyenes, the effects of alkyl substituents and configuration can be sorted out to give a unique value for the stabilization energy increment for each added double bond. The interaction of phenyl groups with the conjugated p-system will also be pursued. These results will be extended to a study of cycloaddition and cycloreversion reactions that are interpreted in terms of a biradical process. In addition to the simple dimerization of two ethylenes, the cycloaddition reactions will include the Diels-Alder reaction and the Cope rearrangement. This grant from the Organic Dynamics Program supports the continuing work of Professor William von Eggers Doering at Harvard University. A carbon-carbon double bond unit connected to a carbon with one odd electron (a tricoordinated carbon atom or radical center) will stabilize the radical center. The magnitude of this stabilization energy and the amount of stabilization of each successively added carbon-carbon double bond unit will be determined by the use of specially designed molecules. In conjunction with the determination of these stabilization energies, the thermochemistry of carbon-carbon double bonds to form cyclic molecules through the intermediacy of a species with two radical centers ( a biradical) will be determined.